SST: Novel Sensor Platforms Based on the Structural Integration of an Organic Light-Emitting Device, a Luminescent Sensing Element, and a Thin Film Si-Based Photodetector

0428220
Shinar

The objective of this proposal is to develop novel photoluminescence
(PL)-based sensors that are fully structurally integrated: The light
source, the sensing element, and the photodetector (PD) and associated
filter, are fabricated on transparent substrates and attached
back-to-back. The resulting sensors could therefore be extremely
compact, robust, selective, fast, autonomous, consume little power, and
inexpensive. The proposal focuses on sensing oxygen, a key tool in
medical, environmental, (bio)chemical, and food monitoring, and Bacillus
anthracis toxin (anthrax).

The intellectual merit. The central concept is the novel total
structural integration of the foregoing components. The light source is
an array of organic light-emitting device (OLED) pixels. The sensing
elements include porous films with an embedded dye, surface immobilized
species whose PL is selectively analyte-sensitive, or microfluidic
channels/wells with recognition elements in solution. The PD and filter
are multilayer thin films of hydrogenated nanocrystalline Si, SiGe,
and/or SiC. The geometry will be "back detection," i.e., the OLED and PD
pixels are fabricated on the same side of the substrate. The array of
long-pass filters and PD pixels is fabricated first, followed by the
OLEDs in the gaps between the PD pixels. The sensing element is
fabricated on a separate substrate and attached to the OLED/PD
substrate. In the complete device, the electronic circuitry (including
instruction receiver and data transmitter), readout, and battery will be
positioned "behind" the PD. Hence the whole device would be ~2.5"x5"x1",
far more compact and less costly than any sensors currently available.
The work results in a new platform for PL-based sensors, which can be
further developed to multianalyte sensor microarrays. Innovative
elements are (i) the complete integration of all the sensor components,
and (ii) the development of sensing elements utilizing microfluidic
architectures and films/surfaces tailored for specific recognition
molecules, which will enhance the sensitivity and shorten the response
time. Moreover, the OLEDs will be operated in a pulsed mode, which will
increase their lifetime and generate negligible heat, which is crucial
for heat-sensitive recognition elements and agents. Oxygen will be
monitored via the PL lifetime, thus eliminating the need for frequent
calibration.

Different approaches will be evaluated to generate robust sensors for
real-world applications. The oxygen sensor will be based on the
dynamical quenching of the PL of oxygen-sensitive dyes, initially with a
green OLED and Pt octaethyl porphyrin (PtOEP) dye. We will compare the
sensors with dyes embedded in solid films with dyes solutions. The
anthrax sensor will be based on the cleavage of certain peptides by
anthrax lethal factor. Labeled peptides will be synthesized at the
Protein Facility of Iowa State University (ISU), with a Forster
resonance energy transfer donor and acceptor on either side of the
cleavage site.

The broader impacts. The sensors for the two aforementioned agents will
be ideal for a broad range of applications in areas such as homeland
security, medical, environmental, biological, food/brewing, and
health/safety. Beyond these impacts, the devices define a new sensor
platform for chemical and biological agents, which could lead to
extremely compact and inexpensive multianalyte sensor microarrays. The
proposed work will serve as a basis for the development of this
platform. It will also expand the basic knowledge in
embedding/immobilizing recognition elements, sensor design, and sensor
engineering. It will also have a broad educational impact, promoting the
growth of the interdisciplinary biophysics program at ISU and training
students in condensed matter physics, electrical engineering,
biophysics, chemistry, and molecular biology. It will be integrated with
teaching by developing new experimental course modules for graduate
students. Significant participation of undergraduates, including
minorities and women, is planned.